IUCRC-Planning Proposal: UNT Research Site Proposal to join Embedded Systems I/UCRC

This planning grant seeks support to establish a research site at the University of North Texas for the existing Industry/University Cooperative Research Center (I/UCRC) for Embedded Systems. This new site will undertake and promote research and development of service-oriented, network-centric systems. The new research site will extend the capabilities of the I/UCRC and enhance the participating universities' ability to open doors to many industrial sponsors. The researchers have extensive experience in the design and implementation of highly dependable and adaptable software and hardware systems for safety-critical and/or mission-critical applications, such as command and control systems, emergency preparedness infrastructure, large scale medical operations, health monitoring, and healthcare systems.

By joining the institution and companies, the I/UCRC will greatly enhance the research capabilities of the participants and revolutionize our national research competence. The immediate impact of the research site will be on the research needed for next generation software and systems for mission critical applications. Graduate and undergraduate students at the institutions and employees of the industrial members will benefit from the I/UCRC infrastructure and industry driven research and development projects.